CAREER: An experiment to investigate nu mu to nu e oscillations: MiniBooNE

One of the important issues in particle physics in recent decades has been the question of neutrino mass. To date, no experiment has clearly measured a neutrino mass that is different from zero. This proposal can lead to approval of an experiment that will make a definitive measurement in a mass region where some indication of non- zero mass has been seen. In addition, this proposal includes an education/outreach component that connects basic scientific research with important applications in medicine.